Dynamic Libraries for Reconfigurable Architectures

The project will develop an algorithmic design methodology for
designing Dynamic libraries. Configuration design techniques
based on Parameterized Computation Structures will be developed
for the library. Parameterized Computation Structures are designs
optimized for a specific computation based on the algorithm and
input instance and thus can lead to compact and efficient designs.
The computation structures will incorporate run-time instantiation
and optimization techniques resulting in a Dynamic library. The
Dynamic library components will be modular and scalable. The
methodology will also exploit partial and dynamic reconfiguration.
The performance of the resulting designs will be evaluated using
total execution time as a metric. The total execution time includes
reconfiguration time in addition to execution time on the hardware.
This effort is expected to significantly advance the understanding
of configurable architectures and result in the development of
dynamic configurable structures.